Collaborative Research: Analysis of Broadband Seismic Measurements from the Ocean Seismic Network Pilot Experiment

Collaborative Project
OCE 98-19615
Vernon
OCE 99-000943
Collins

The recommended project will examine the comparative performance of seismometers associated with the Ocean Seismic Network Pilot Experiment, a group of three seismometers installed at the OSN-1 site in and around ODP Hole 843B, located 225 km SW of Oahu, Hawaii. These seismometers were installed in the borehole, buried in mud (ooze), and on top of the seafloor sediments. The project will compute the detectability of earthquakes (signal-to-noise ratio) for all three seismometers, and compare them to results from other land-based seismic systems and earlier ocean-based seismic systems. In addition, there will be a focus on computing and analyzing the ambient noise spectra of the mud-buried and seafloor seismometers, especially in regards to sediment shear-wave resonances, compliance, and the effects of bottom currents and gravity waves. Evaluation of this data will lead to recommendations for revised designs and future OSN installations.
***